ROW Planning Grant: Crystallization Kinetics in Metals

This proposal is a Research Opportunities for Women Research Planning Grant request to demonstrate the feasibility of measuring segregation coefficients and crystal melt velocities as a function of composition in picosecond pulsed laser-quenched metal alloys. Velocities of the solid-liquid front are measured optically and composition changes determined by Rutherford Back Scattering. The planning grant permits completion of the equipment and associated testing and initial experimental testing.